Acquisition of a Confocal Laser Scanning Microscope

A grant has been awarded to Dr. Bruce Kohorn at Bowdoin College in order
to purchase a confocal laser scanning microscope. The microscope will
provide the ability to obtain high resolution fluorescent images from both
live and fixed biological samples, and will become the only such instrument
in Maine at a liberal arts undergraduate college. The microscope will be
used to explore fundamental questions in neurobiology and behavior, plant
development, nuclear protein transport, evolutionary genetics, and
biomechanics. Seven faculty and their students from the Biology and
Psychology departments of Bowdoin College, and two faculty from Bates and
Colby College will use the instrument to achieve high resolution images for
basic biological research.

The new instrument will be used by many faculty in their research on
topics that include the function of the nervous system, the organization of
cells, and the comparison of cellular structures so as to understand basic
processes of evolution. The students in research labs will be exposed to
current and standard technologies that they too will need to use once in
more advanced degree programs. Students will be prepared for careers in
Biology and related fields by providing the technical and theoretical
background for one of the most common methods of imaging in cell and
molecular biology.